Shelf-Slope Water Exchange through Interaction of Eddies with Buoyancy-Driven Currents

PI: Cenedese
Proposal Number: 0081756

Funds are provided for laboratory experiments in a rotating tank simulating the interaction of an oceanic eddy and a shelf break frontal current. Oceanographically interesting subsets of parameter space will be investigated. Stratification representing both summer and winter stratification on the Middle Atlantic Bight /New England shelf will be utilized. The parameter space investigated will be the ratio of shelf jet current strength to eddy current strength and the ratio of shelf current width to Rossby radius of the eddy. Emphasis will be placed on understanding the exchange of mass across the shelf break region.